New Nuclear Magnetic Resonance Techniques for the Study of Incommensurate Insulators and Incommensurate Glasses

9624962 Ailion NMR (and NQR) techniques for the study of the ultraslow diffusion of large topological. defects will be further developed by the PI and applied to detecting the diffusion of the modulation wave in structurally incommensurate insulating and incommensurate glasses. These techniques are based on measurements of the magnetization decay over the incommensurately broadened NMR lineshape. In addition, rotating-frame relaxation time techniques will be developed for measuring the slow motions of quadrupolar nuclei. These techniques will be applied to elucidating the nature of such motions during the transition from a perfect incommensurate crystal to an incommensurate glass. The techniques developed in this project should be applicable to motions of other topological defects such as dislocations in deformed solids, domain walls in magnets, superconducting flux lines, charge and spin density waves, and layered boundaries in layered structures. %%% Nuclear magnetic resonance (NMR) techniques will be developed further and applied to the study of the ultraslow motions of large massive defects in solids, which can not be detected by other techniques. However, a novel technique, recently developed by the principal investigator, can detect motions that are several orders of magnitude slower than can be observed by the conventional techniques. In particular, these methods will be applied to the motions of a particular defect. called the modulation wave, which exists in a special class of disordered material (called incommensurate), which has properties intermediate between that of a perfect crystal and a glass. This research touches on the transition between perfect crystals and disordered matter as well as on the nature of glasses. The insight gained may be important in understanding the properties of magnets and superconductors, and the new techniques should be app licable to motions of other large-scale defects in widely different solid state systems. ***